Improvement of Senior Lab for Physics and Space Sciences Majors by Adding Computational Physics

Four to six experiments in Computational Physics will be added to a senior physics laboratory. Students will be spared the task of writing computer programs. Instead, commercial software will be used as primary tools. The inclusion of the studies of chaos in non-linear dynamics, orbit simulation of spacecraft under the influence of both the earth and the moon, etc will enrich the experience of the students and acquaint them with a practical approach to "real world" problems.